Investigation of Fundamental Behavior of Single Crystals and Polycrystalline Solids for Application to Metal Forming

An experimental study of the single crystal constitutive equations and polycrystal behavior will be carried out with emphasis on the determination of grain interaction in the behavior of polycrystalline aggregates. This will be achieved by measurements of the local finite plastic deformation in each grain, as well as global finite plastic deformation of the polycrystal. Compression, tension and biaxial compression experiments will be performed on polycrystals with very large grain size (4-12 mm), thus making it possible to determine local deformation in each grains. Material and lattice rotations will be measured using marked grid or small strain gage rosettes and x-ray diffraction technique, respectively. Test samples will be made from very high purity aluminum and each sample may contain twenty to thirty grains in order to obtain a representative polycrystal behavior. Experiments will also be performed on polycrystals (with regular or normal grain size) in order to determine better constitutive models for finite plastic deformation of these solids.